Molecular Dynamics within a Recombination Machine: Genetic and Biochemical Analyses

9407607 Abstract The project will be a study of a key protein required for a site- specific recombination reaction in yeast, Flp. The mechanism of the reaction has been studied and a number of mutants isolated that block the reaction at different stages. The work will involve characterization of the mutants to identify protein domains involved in specific sub-reactions. Of special interest is the substrate recognition domain which determines which DNA sequences will be recombined. Site-specific recombination systems are extremely useful tools for genetic engineering of complex genomes including potential uses with plants and humans. *** In some organisms, two different DNA molecules can be joined to one another at very well defined sites, that is specific base sequences, which exist in the two molecules. This is an important reaction for cells in many different ways. Expression of some genes is regulated by this mechanism, viruses are able to maintain long-term infections of host cells via the process, and generation of antibody molecules and related proteins depend heavily on site- specific recombination. The Flp system from yeast is a model system for studying this process using both biochemical and genetic approaches. In this project, mutants in the Flp recombinase will be characterized to understand how the sequences of DNA are selected for recombination and also how different domains of the protein affect different aspects of the process. %%%